Postdoc: Spectral Methods for Complex Geometries

9504002 Gottlieb New spectral multi-domain methods for unsteady hyperbolic problems in complex geometries will be developed further and implemented on scalable parallel computer architectures. These schemes are based on the use of a penalty term for enforcing the boundary/patching conditions and the schemes may proven asymptotically stable. A new approach to spectral methods will allow for unstructured grids in the individual subdomains. Combining these two novel approaches will result in an algorithm with full geometric flexibility.